Characterizing and Controlling Reactive Group Density and Distribution at Mono- and Multilayer Interfaces

The objective of this research project, carried out by Professor Gary Blanchard and his coworkers at Michigan State University, is to develop ways to control the density and distribution of reactive functional groups at interfaces. A synthetic approach using polymeric molecular layers is used to control the density and distribution of interface functionalities. Optical probes, including picosecond lifetime measurements, molecular reorientation and isomerization measurements, and surface second harmonic generation intensity and imaging measurements are used to characterize the synthesized interfaces. With the support of the Analytical and Surface Chemistry Program, the results of this research provide an enabling foundation for future understanding of the chemistry of structurally complex surfaces.

Synthesis and characterization of complex interfaces is the focus of this research project carried out with Analytical and Surface Chemistry Program support. Polymeric synthetic approaches coupled with state of the art optical characterization provides detailed fundamental information about the distribution, type, and density of chemical functionalities at these complex interfaces.